Manifolds with Group Actions and their Quotients

Abstract

Award: DMS-0606869
Principal Investigator: Rebecca Goldin

Orbifolds are among the simplest type of singular spaces. They
arise in symplectic geometry as reductions, in algebraic geometry
(where they are called Deligne-Mumford stacks) as certain moduli
spaces, and in topology as quotient spaces. Algebraic invariants
of these spaces, such as stringy Betti numbers, twisted Hodge
numbers, and Chen-Ruan cohomology (also called orbifold
cohomology) have recently gained interest because they are subtle
enough to see the singularities, and in some cases describe the
cohomology of a (crepant) resolution of singularities. This grant
will explore new methods to compute the Chen-Ruan cohomology of
an orbifold, following work done by the PI and coauthors in the
case that the orbifold is a global quotient by a compact abelian
Lie group. These methods should produce a new combinatorial
fomula for the Chen-Ruan cohomology of a hypertoric variety (a
hyperkahler reduction of quaternionic n-space by a compact
torus), a formula for the K-theory of global abelian quotients,
and the Chen-Ruan cohomology of non-abelian (Lie group)
quotients. We hope to use these methods to discount or prove
certain conjectures about or bifolds and crepant resolutions. In
a separate undertaking, the PI is pursuing a general
combinatorial formula for questions about the equivariant
cohomology of manifolds with circle actions and isolated fixed
points. We have found a topological formula for the restriction
of certain canonical classes to any other fixed point, which has
led to a kind of classification in 6-dimensions. In higher
dimensions, we have found a "positive" restriction formula in the
case that the manifold is Kahler and carries an invariant
Palais-Smale metric (or has other rather rigid structure, such as
being a GKM space). This work should lead to combinatorial
formulas for the product structure in the equivariant cohomology,
a topic of broad interest because it applies to flag manifolds
and toric varieties, among other varieties. In a third project,
we propose to investigate different formulae for the structure
constants in Schubert calculus using methods developed on the
calculus of Bott-Samelson manifolds. This should also generalize
to fixed-point restriction formulas in the case of a symmetric
group (the fixed points of an involution on G) acting on G/B.

This research has roots in classical mechanics. Phase space,
which consists of the position and momentum of a particle, is an
example of a symplectic space, with an action by the symmetry
group, also called a Hamiltonian action. Symmetry arises from the
fact that the physics is the same for all observers. By
"collapsing" a high-dimensional symplectic space by the
symmetry, we can get a smaller space that is sometimes easier to
work with. In a broad sense, this grant is concerned with
describing these spaces with group actions, and their
quotients. It will have impact on certain questions in physics
that have arisen in string theory, as well as contribute to the
discussion of how "rigid" our physical universe is by
virtue of symmetry.